International Conference on Applications of Symbolic Computation (ACA-2004); July 21-23, 2004; Beaumont, TX

The workshop will consist of over ten sessions organized by prominent researchers who will focus on their own application areas including computer aided geometric design, geometric modeling and computation, robotics and kinematics, mechanics, high energy physics, economics and finance, theorem provers, types and specifications, differential equations, the symbolic numeric interface, education, engineering, science and applied mathematics. The researchers that are participating in this workshop are among the best in the world. The list of sessions is in the proposal. The workshop will be held in Beaumont, Texas.